Developmental Visit of Soviet Scientist to Develop Proposal for Long-Term Joint Research on Permafrost Related Climatic Change

The purpose of this travel award is to support a visit at the University of Alaska, Fairbanks by Dr. Eduard Yershov, Chairman of the Department of Geocryology at Moscow State University, to explore the possibility of developing a proposal for long-term cooperation on permafrost as related to world climate change with Dr. Thomas E. Osterkamp of the University of Alaska's Geophysics Institute. This is a targeted topic under the general category of Arctic Research under the Memorandum of Understanding between NSF and the Soviet Academy of Sciences for basic research cooperation. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.